Engineering Research Equipment Grant: A Workstation with Artifical Intelligence and Graphics Capability

This action provides partial support towards the purchase of a workstation. The workstation with artificial intelligence and graphics capabilities will be used to investigate ways of implementing existing and new formulations of multibody dynamics in a multiprocessor environment. The vendors have given the University a special NSF-discount and the Institution is cost sharing 50% with the Foundation on the purchasing price of the workstation.